Collaborative Research on the Northeast Water Polynya: Particle Distribution, Flux and Fate

This project is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, sea-ice and biology in the Northeast Water (NEW) Polynya, which occurs near northeastern Greenland, in order to gain an integrated understanding of Arctic shelf-slope processes. This element of the NEW program will evaluate the magnitude and temporal variability of biologically produced large particulate organic material, its flux to the benthos, and its fate using a variety of complimentary experimental techniques.